Light Spanners for Hard Metrical Optimization Problems

Given a metric space, that is a finite set of points with
distances between them, there are several classical
minimization problems that are hard to solve exactly. A
prime example is the traveling salesman problem (TSP),
where we want to find a cyclic tour visiting all the
points with minimum total distance. These problems arise
in a wide range of applications such as manufacturing and
communications network design. In the worst case it is
NP-hard to solve these problems even approximately, that
is with relative error better than some constant threshold.

Recent results show that these problems are easier in
metric spaces that often arise in practice. In particular
if the distances are geometric, or if they are given by
shortest paths in a simple graph (such as a planar graph),
then the TSP and similar problems have approximation
schemes. These schemes run in polynomial or
quasi-polynomial time, with the exponent depending on the
desired relative error. The main techniques include
separators, spanners, and dynamic programming. In
particular a spanner is a subgraph of a given graph, whose
shortest path metric is a close approximation of the
original. In various graph families we can find spanners
with a useful tradeoff between the total weight and the
relative error.

This research continues the development of these
techniques, in particular seeking better spanner
constructions and possibly some useful lower bounds. One
goal of the project is some progress on two unsolved
variants: the geometric case in the presence of
obstacles, and the graphical case in the presence of many
extra ``Steiner'' points.